Numerical Studies of Inhomogeneous Cosmological Space-Times

This project in computational cosmology deals with studies of inhomogeneous cosmological space-times in regions where the standard linear theory of cosmological perturbations has its limitations, namely super-horizon scales or highly non- linear collapse of matter structures. Prof. Laguna's approach will utilize high performance computing to solve the full non-linear set of Einstein's equations governing cosmological dynamics. This will be followed up with investigations of the propagation of light in clumpy universes. Here, the emphasis will be on two topics: weak gravitational lensing and polarization of the cosmic microwave background (CMB) radiation. This research is timely and complementary to previous research in this area that makes little use of the full details of modern gravitation theory. CMB polarization experiments are now being undertaken by several different groups, and it will be important to understand the implications of their results.